Workshop on Decision and Control of Discrete Event Dynamic Systems

Proposal is for a 3-day Workshop, to be attended by the major researchers in Discrete Event Dynamics Systems. It is impractical to obtain reviews from persons who are knowledgeable but uninvolved. The DEDS area has been gradually growing. Operations research problems in manufacturing systems have led to System Theory models (such as markov decision processes) and larger areas of application (communication protocols, e.g.). The work of several major figures in Operation Research and System Theory can now be compared and unified approaches synthesized. The goal of the Workshop, to provide future mission- oriented research applications, will give it focus; the rapidly developing field makes such a Workshop timely; and the Budget is realistic. In view of the probable future impact of the Workshop on DEDS research, I recommend awarding this proposal a grant in the amount requested.